ISM Physics in the Cosmic Web from Massive Spectroscopic Surveys

A key topic in modern galaxy evolution is the investigation of how the interstellar medium (ISM) of galaxies is altered by moving through the cosmic web. A researcher from the University of Kansas will measure the conditions of the ISM within galaxies in different environments using public spectroscopy from the Dark Energy Spectroscopic Instrument (DESI). The project will explore an essential aspect of the baryon cycle, namely how a galaxy's environment can affect the physical conditions of the ISM. The research has the potential to constrain the environmentally-driven processes that quench star formation in galaxies as they move through the cosmic web and enter the densest regions of the Universe. Data from this project will be used in research activities for undergraduate and high school students in Kansas.

The primary science objective is to understand how the density and pressure of the ISM in galaxies is affected by the cosmic web, using the newest generation of massively multiplexed spectroscopic surveys. Using data from the Bright Galaxy Survey (BGS) from DESI, this project will determine important conditions of the ISM including the ionization parameter, the gas-phase metallicity, the density, and the pressure. These properties will be derived for 1 million galaxies at redshifts below z=0.4 by using a forward modelling framework developed to constrain the distribution in properties of the ISM over the larger spatial scales included in each BGS spectrum. The researcher will perform investigation into how these parameters scale with the intrinsic properties of galaxies, including their stellar mass, star formation rate, the surface density of star formation in the DESI fiber, and their metallicity. The results will work toward determining how a galaxy’s environment affects the ISM density and pressure by correlating the ISM conditions with the environment of the galaxies.